STEM Futures: Nurturing Educators for Pennsylvania's High-Need Schools

This Noyce Track 1 project aims to serve the national need of preparing high-quality teachers to meet the STEM teacher shortages of highly qualified individuals in STEM to teach in high-need schools. Additionally, this project will support 12 scholars highly prepared in the fields of biology, biochemistry, neuroscience, and mathematics by providing scholarships and a structured pathway for scholars to gain licensure in one or more STEM fields. The proposed project components will enable high-achieving prospective teachers to highly qualified STEM teachers prepared to excel in high-need classrooms.

This project at Holy Family University includes partnerships with high-need schools, including Franklin Towne Charter High School, Sankofa Freedom Academy Charter School, and Wissahickon Charter School. Project goals include: (1) Recruit 12 STEM majors/Noyce scholarship recipients to pursue education and STEM teaching careers with salary supplements. (2) Retain 100% of original Scholars through strategies that include faculty mentorship, professional development experiences, learning cohorts, and citizen-science lesson planning that meet Next Generation Science Standards crosscutting concepts. (3) Graduate 100% of Noyce Scholars within four years with a STEM major and content competency as indicated by passing the Praxis II exam in one or two content areas. (4) Track and support the persistence of Noyce Scholar alumni during their high-need school teaching service by providing mentorship, induction-support activities for four years of their teaching, and salary supplements for the first five years. This project will be iteratively evaluated. Evaluation of the project will be guided by the following evaluation questions: a) What is the impact of the Noyce program on scholar preparedness to teach in a high-need environment? and b) How do the induction support activities foster retention within the STEM teaching field? The results of this project will be disseminated to help enhance the field. This Track 1: Scholarships and Stipends project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.